Dissertation Research: Adding Natural Enemies to a Virus- Plant Interaction in an Agricultural System

In order to develop and evaluate control strategies for insect- vectored plant pathogens, in agroecosystems, both vector population dynamics and behavioral ecology must be understood. While many studies have examined insect population dynamics and mortality due to natural enemies, few have studied the impact of natural enemies on the movement behavior of insect vectors. This is true despite demonstrations that both predaceous and parasitic natural enemies can affect vector movement, that the resulting change in vector movement behavior can increase disease spread, and despite the ongoing USDA project to release natural enemies for aphid control in grains throughout the Western US. We will compare the impact of a predator (Coccinella septempunctata a beetle) and a parasitoid (Aphidius sp., a wasp) of the major aphid vector (Rhopalosiphum padi) on the spread of barley yellow dwarf virus which affects small grains worldwide. This study will develop mechanistic models of insect-vectored plant disease and compare model predictions with experimental results. There are no mechanistic models of insect-vectored plant disease, and such models will assist in evaluating the disease consequences of biological control strategies using easily observed behavioral parameters of the organisms involved. The research will test model hypotheses by confining natural enemies in plots of oats in the field and measure aphid movement, aphid mortality, and disease incidence.